PYI: Evolutionary Biology and Human Psychological Adaptation

This Presidential Young Investigator Award will allow Prof. John Tooby to expand his seminal work in the area of "evolutionary psychology;" an integration of evolutionary biology, anthropology and cognitive psychology. To date his work has led to a deeper understanding of the evolution of the genome, the evolution of sexual reproduction and insights into the evolution of hominid behavior. In his most recent writings, Tooby makes the case that one must first understand the psychological mechanisms that underlie cultural practices, their generation and transmission, before one can understand the practices themselves. The wide breadth of his pursuits indicates his encyclopedic knowledge of what had been disparate fields. Because evolutionary psychology is currently forming through the integration of other intellectual endeavors, there are few opportunities for funding; the PYI will foster the maturation of both the individual and the paradigms of the field. This is turn may lead to the development of new fieldwork techniques.